Conference: Algebraic Combinatorics Virtual Expedition

The Algebraic Combinatorics Virtual Expedition (AlCoVE) is an annual two-day online conference for mathematicians studying the interplay between algebra and combinatorics and their applications to other areas of mathematics and science. At the start of the COVID-19 pandemic, AlCoVE was launched to bring together the algebra and combinatorics communities in a virtual setting. We aimed to re-create as many of the beneficial aspects of in-person conferences as possible, including mentoring and networking. Since the 1st edition in 2020, the conference has drawn hundreds of participants from all around the world, and we are now continuing to run AlCoVE as an annual online conference, improving our virtual experience through technology funded by the NSF. AlCoVE strives to be an inclusive, global conference that promotes collaboration and progress in this field, while simultaneously increasing accessibility and helping to reduce the carbon footprint of mathematics conferences.

AlCoVE 2026, to be held on June 8-9, will feature presentations on a wide array of topics in algebraic combinatorics and its applications. These topics include enumeration, lattices and posets, generating functions and q-series, symmetric function theory, computational and enumerative algebraic geometry, polytopes and Ehrhart theory, dynamical algebraic combinatorics, combinatorial optimization, and topological combinatorics. There will be a poster session for junior researchers to share their work as well, and dynamic social events to foster networking and collaboration. The website for the 2026 edition and the previous ones can be found at http://www.math.uwaterloo.ca/~opecheni/alcove.htm